PGE/LCP: Eyes to the Future: Middle School Girls Envisioning Science and Technology in High School and Beyond

In partnership with three Massachusetts school districts (Boston, Somerville, and Brookline), a large-scale collaborative project will be implemented and disseminated that intervenes with middle-school girls before they have chosen or ruled out possible futures for themselves. It will link middle-school girls with high-school girls in their districts who have stayed interested in mathematics and science and with women who utilize science, mathematics, engineering, and technology in their careers. The project will provide enriched science experiences, affective and academic support, and a broader knowledge of possible futures in high school and careers. After-school programs will be implemented at which middle-school girls will communicate with mentors and engage in SMET investigations and will include teacher enhancement. Seven hundred middle-school students will be involved as well as 230 high-school students, 300 teachers, and 230 women mentors from the community.